CAREER: Computer - Aided Verification

The discipline of Computer-aided Verification attempts to provide software and hardware engineers with (semi) automatic formal methods for improving the reliability of concurrent and real-time systems. Over the last decade, Computer-aided verification has matured into a well-defined but loose collection of various models, theorems, algorithms, techniques, and tools. Indeed, to the outsider the discipline seems to provide a shopping list of different formalisms and methods, with little or no assistance as to which model, technique, or tool may be particularly (un) suited for a given task. This CAREER research seeks to aid the further advancement of the discipline and the technology transition by a systematic organization of the core results in a single standardized framework that can be taught on the undergraduate level, the reactive-system model. To achieve both simplicity and generality, a system is identified with its reaction function, which, given a system state and an environment move, yields a set of possible new system states. Based on the reactive-system model, this research pursues three objectives: (1) Development of a uniform, clean, and comprehensive theory of Computer-aided Verification. While most results were formulated, originally, for specific formalisms with various idiosyncrasies, it is expected that the translation of theorems and algorithms into a common framework will lead to a deeper understanding of dependencies, connections, and applications. (2) Preparation of a standard textbook on Computer-aided Verification, targeted at the advanced-undergraduate level and the beginning-graduate level. It is hoped that the text will move formal methods into the mainstream of the Computer Science curriculum. (3) Development of a course on the practice and applications of Computer-aided Verification, a project-oriented course is offered to advanced undergraduates and beginning graduate students in engineering.